New Directions for a Meteorology Laboratory in Research and Education

The Atmospheric Sciences Program at the Univesity of Kansas plans to upgrade its student synoptic-mesoscale laboratory to meet the growing needs of the program and to better take advantage of current software capabilities and data streams. The program has a steady flow of students and will be seeking to add another faculty member in the next year.